Studies on the Role of Adenovirus E1B Oncoprotein in Gene Expression

Abstract 9407333 The adenovirus 21 kDa E1B protein has been reported to assist the adenovirus E1A protein in cellular transformation, increase gene expression, stabilize DNA, and abrogate apoptosis induced by E1A. The mechanism whereby E1B functions in these phenomena is presently unclear. Our earlier findings showed that E1B protein led to increased gene expression from another adenovirus gene that encodes the capsid protein, polypeptide IX (pIX). Our present investigations of the pIX gene show that E1B protein does indeed increase gene expression by offsetting transcriptional repression. Recombination signal sequence binding protein, RBP, acts as a transcriptional repressor of the pIX gene. This repression does not entail displacement of the activator SP1 or TATA binding protein from their respective sites on the pIX promoter or by competition with another activator. These findings represent the first reported function of RBP, other than DNA binding. This novel function appears to pertain directly to at least one of the many roles E1B exhibits in the cell. We will now investigate the molecular mechanism of RBP-mediated repression using the adenovirus pIX gene. The positioning of RBP at the pIX promoter will be analyzed with respect to perturbations in assembly of the general transcription factors and steric hindrance to activation. The RBP functional domain(s) responsible for repression will be investigated using analyses performed in vivo and in vitro. Since E1B protein offsets RBP repression, the mechanism of RBP repression should bear on E1B activity, as well as contribute to understanding gene regulation, in general. We will also initiate studies on the anti-RBP repressive affect of E1B protein. E1B protein will be tested for direct interaction with RBP and affects on complexes containing RBP and the pIX promoter. The ability of RBP to repress activation of the viral pIX gene is crucial to its regulation. The participation of E1B in relieving th is repression may provide the unifying property to this multi-functional protein. %%% The cellular protein RBP is present in many different cell lines. Originally, RBP was thought to be a DNA recombinase. However, recent studies have shown that RBP is actually a repressor that binds to DNA and inhibits transcription. This newly discovered activity associated with RBP will be explored during the time period of this award. Using an adenovirus gene, experiments will be performed to understand how RBP silences gene expression. Remarkably, recent studies have revealed that RBP repression is absent when an oncoprotein is present. Adenovirus produces an oncoprotein during cellular infection and this function may be important to the means by which the virus participates in loss of cellular growth control. The protein exhibits a number of properties which currently appear to be unrelated: participation in loss of cellular growth control, increased gene expression, and stabilization of DNA. Thus far, the means by which this protein elicits these effects is unknown. The protein provides an excellent model for exploring cellular processes. The goal of this award is to understand how RBP represses transcription to provide the basis for understanding how the EBI protein offsets this repression. ***